Career: Electroosmotic and Abiotic Enhancements for the Remediation of TCE Contaminated Ground

9625087 One of the greatest needs of in situ remediation technologies is the development of systems that will overcome the commonly poor rates of contaminant extraction from highly sorptive and low permeability zones. In most common remediation technology, "pump and treat," fluid extraction rates are high but the contaminant removal rates are largely controlled by the relatively slow processes of diffusion and desorption from heterogeneous zones. This research is devoted to two of the most important heterogeneity types: contaminated clay lenses in a productive aquifer, and a sandy layer or fractured zone in a relatively impermeable media. Two emerging strategies will be investigated: electroosmotic enhancements applied to a clay lens; and a novel, safe, abiotic reagent chemistry that can be injected into fractures and sandy zones. While the fundamentals of each technology are well-defined, this work will demonstrate how the two technologies can be integrated to obtain electroosmotic enhancement with in situ abiotic degradation. The chief educational objective is to develop and integrate the common scientific and engineering fundamentals that are important for a wide array of geoenvironmental problems. The PI will develop geoenvironmental curriculum strategies, broaden the exposure of new research methods, and work to strengthen the analytical training of students. Collaborations with industry and government agencies will greatly enhance these educational and research plans. ***